Spectroscopic Investigations with Global Modeling of Hypersurfaces and Related Dynamics in Neutral Hydrogen Bond Dimers

In this project in the Experimental Physical Chemistry program of the Chemistry Division, Professors Bevan and Lucchese of Texas A&M University will use pulsed lasers to characterize hydrogen bond dynamics of gas phase systems. By making use of modern high resolution spectroscopic techniques applied to relatively simple diatomic and triatomic systems, it will be possible to test quantitative models for fundamental hydrogen bond properties at a level of detail not suitable for more complex situations. %%% Hydrogen bonding is one of the most significant interactions between molecules. This kind of interaction influences such diverse properties as the boiling and freezing points of water and the structure of genetic material (DNA). The time course of rapid hydrogen bond formation can best be investigated in simple gas phase systems which are amenable to detailed theoretical calculations. Professors Bevan and Lucchese will conduct experiments and develop appropriate theory for such systems, and the result will be a deeper understanding of the ubiquitous hydrogen bonding process.